New Equipment for the Aquatic Sciences Program

This project provides equipment for use aboard the D.J.ANGUS (a teaching vessel constructed with College and private funds) to continue and improve Grand Valley State Colleges' interdisciplinary programs in aquatic science. Unique instructional opportunities are provided for undergraduate college students, K-12 teachers and selected high school students to conduct biological, chemical, geological, meteorological and other physical studies of lacustrine and riverine ecosystems in the field. Departments involved include Biology, Geology, Physics and Engineering, and Natural Resources Management.